POWRE: Control of MHC Expression in Cerebrovascular Endothelial Cells

Cristabel Welsh Abstract
99-73640

The objective of this POWRE proposal is to examine the resistance of cerebrovascular endothelial cells (CVE), the lining of blood vessels, to viral infection using Theiler's virus as a probe based on the induction of major histocompatibility complex (MHC). The hypotheses is that control of MHC (that is the resistance to its induction) is crucial for resistance to infection of these cells and, hence, demyelination. The major preliminary findings are that the resistant mice do not express the MHC I or II protein, whereas both sensitive and resistant cells express IFN-beta mRNA and activity, and also MHC I mRNA. The transcription factor NF-kB is present in the nucleus at low levels in the sensitive cells, but not in the resistant cells, and it increases in both sensitive and resistant cells after virus infection. Four aims are proposed: to test if MHC expression is at the level of transcription; to analyze interferon-mediated transduction signals in CVE; to test if the lack of MHC expression is due to a regulation of transcription factors and, to estimate the number of inerferon receptors on CVE.